Proposal Processing Support to Cultural and Physical Anthropology Programs (Task Order #120)

This contract to Friday Systems Services provides administrative and logistic support to the Cultural and Physical Anthropology programs to perform proposal processing, data entry and panel support and post panel support for approximately 200 proposals in 4 competitions (cultural anthropology senior and dissertation competitions, and physical anthropology senior and dissertation competitions).